NSF EPSCoR Workshop: Successful Management Strategies

A workshop on management strategies and future planning for the NSF EPSCoR program will be held in June
2003. Topics to be addressed include the following: strategies for building effective state committees, the role of EPSCoR in economic development, human resource development at research universities, effective evaluation strategies, effective communication with the public, and prioritizing areas for EPSCoR investment. The resulting documnetation will be a resource manual and a set of recommendations for future strategies.